FMitF: Collaborative Research: Formal Methods for Machine Learning System Design

Machine learning (ML) algorithms, fueled by massive amounts of data, are increasingly being utilized in several critical domains, including health care, finance, and transportation. Models produced by ML algorithms, for example deep neural networks, are being deployed in these domains where trustworthiness is a big concern. It has become clear that, for such domains, a high degree of assurance is required regarding the safe and correct operation of ML-based systems. This project seeks to provide a systematic framework for the design of ML systems based on formal methods. The project seeks to review and improve almost every aspect of the design flow of ML systems, including data-set design, learning algorithm selection, training of ML models, analysis and verification, and deployment. The theory and ideas generated during the project will be implemented in a new software toolkit for the design of ML systems in the context of cyber-physical systems.

The project focuses on cyber-physical systems (CPS), which is a rich domain to apply formal methods principles. Moreover, the research ideas from this project can be readily applied to other contexts. A key aspect of this research is the use of a semantic approach to the design and analysis of ML systems, where the semantics of the target application and a formal specification for the full system, comprising the ML component and other components, are cornerstones of the design methodology. The project employs a range of formal methods, including satisfiability solvers, simulation-based verification, model checking, specification analysis, and synthesis to improve all stages of the ML design flow. Formal techniques are also used for the tuning of hyper-parameters and other aspects of the training process, to aid in debugging misclassifications produced by ML models, and to monitor ML systems at run time and ensure that outputs from ML models are used in a manner that ensures safe operation at all times.